Neurogenetics of Identified Cells

A central issue in developmental neuroscience is the identification of molecules that guide nerve cells during axonal growth and final target recognition. Molecular genetics will be used to identify genes in the fruit fly that code for cell-surface labels or other molecules which neurons use to recognize specific pathways and synaptic partners. The subjects are eight large neurons mediating the escape response in the fruit fly. These neurons have been extensively characterized physiologically and anatomically. Mutant flies have been developed in which specific connections between these neurons are disrupted. The mutation, Pas, blocks a key link in the escape response. This gene has been cloned. Some mutations in the region of the Pas gene are lethal, while others cause only neurological defects. The relationship between these two phenomena will be studied. Two transcripts have been found in the Pas region. A molecular analysis of these transcripts will be undertaken to determine the basis for lethal or neurological defective development. These studies promise to provide information generally relevant to the molecular mechanisms regulating the development of synaptic specificity.